Mount St Helens - Honors Workshop for Science Teachers

This Leadership Activities program will provide enhancement and professional development experiences for 24 teachers in the earth, physical, and biological sciences, who have demonstrated potential leadership abilities in science education. The participants will be recruited Nation-wide with special efforts to include individuals who have been selected as presidential scholars or identified as exceptional science teachers. Three high-ability geology majors, who have not yet opted for a science teaching career, will be invited to participate in a workshop for credit. It is hoped that this involvement will kindle an interest in a science teaching career. The objectives of this program are to provide formal classroom instruction on the evolution of the Cascade volcanoes including magma genesis and plate tectonics, and to include information about the economic, social and environmental impacts of the eruptions of Mt. St. Helens from 1980 to present. The instructional vehicles will be field trips, field exercises, laboratory exercises, discussions, computer simulations and group work. The workshop is scheduled for two weeks August 4-16, 1986. Most of the formal workshop instruction will take place at the University with provision for field trips and field work taking place on site at Mount St. Helens and other locations. Follow-up activities will include participants sharing their acquired knowledge and skills with colleagues and students and expanding the literacy of the community at large about science. Project information and results will be available through commercial and participant- prepared materials, both photographic and textual.